Mathematical Sciences: Mathematical Models of Evolution of Heterogeneity in Cell Populations

The principal investigator will consider several mathematical models of heterogeneity in cell populations. Heterogeneity is the broad distribution and rapid dispersion of characteristics of cells growing in populations. This is a collaborative project between a mathematician and a biologist. The main mathematical tools used will be the theory of branching processes for the stochastic features and the theory of operator semigroups for the deterministic (structural) features of the models.